Block Travel: The Fourth Symposium on Expert Systems Applications to Power Systems; To be held in Melbourne, Australia January 4-8, l993.

This proposal is for block travel grant to make a strong U.S. attendance at the Fourth Symposium on Expert Systems Applications to Power Systems (ESAPS) possible. This international meeting is a excellent vehicle for the dissemination and exchange of information on this emerging and important area. Participation by key researchers from around the world is expected. An effort will be made to augment NSF funds with industry funds as well.